Automultiscopic 3-D Visual Communication System Based on Joint Reconstruction/Multiplexing of Views

This project addresses technical challenges that face next-generation immersive visual communication. It proposes to study one particular type of immersive communication system base on auto-multiscopic (eyewear-free multiview) 3-D display. Such a system would consist of three closely-spaced digital video cameras, standard PCs, some compression hard-ware/software, and the said multiscopic display. This system would allow interaction in 3-D space by allowing depth perception, and moreover, "look-around", i.e., geometrically correct viewing from a number of viewpoints. Anticipated applications are 3-D videoconferencing, remote collaboration, telecommuting, etc.